Applications of Stochastic Optimal Control Theory to the Real-Time Operation of Multireservoir Systems

The way reservoirs of water are operated plays a crucial role in making efficient use of the stored water in resolving the often conflicting demands of flood protection, water supply, and hydropower generation. In current engineering practice, reservoir systems are usually operated according to certain rules which are usually determined by trial and error and tested through simulation studies, without the benefit of modern systems analysis techniques and high-speed digital computers. This research project investigates the application of stochastic optimal control theory to the problems of real time operation of multi-reservoir systems.